Young Scholars Program

Northern Kentucky University will initiate a 4-week commuter Young Scholars project for 40 students in grades 8-9 in physics and math. The goal of the Northern Kentucky University Young Scholars Program-Early Alert Initiative is to increase the awareness and interest of junior high students in mathematics and physics as potential career options. The program is designed to present mathematics, physics and other applied sciences and the tools for solving exciting problems, individually, and in small cooperative learning groups. This four-week commuter summer program enjoys community and industrial support as students take weekly tours of research and development centers, and engineers and scientists come to campus to work with students. Follow-up activities include a bi-monthly newsletter and six Saturday workshops to further develop problem-solving skills.